U.S. National Committee for Rock Mechanics

The U.S. National Committee for Rock Mechanics (USNC/RM) is the focal point for rock mechanics and other geotechnical activities within the National Research Council (NRC), and operates under the auspices of the NRC's Board on Earth Sciences and Resources (BESR). The Board on Earth Sciences and Resources is considering whether there is a need for modification to the name and task statement for the USNC/RM. Consultations with sponsoring agencies and the community are continuing, with the expectation that a committee with a broader scope and task statement will be in existence by the end of 2001. There is an expectation that a more broadly-based committee will encompass the full range of geological and geotechnical engineering disciplines, and that the new committee will concentrate to a greater extent on producing advisory studies and reports at the request of federal agencies. This proposal is seeking support for this wide-ranging consultation process.